MIT Laser Collaborative Research Facility

The Chemistry Division through its Chemical Instrumentation Program, its Experimental Physical Chemistry Program, and its Inorganic/Bioinorganic/Organometallic Chemistry Program supports a research project involving a large number of MIT scientists working within the George R. Harrison Spectroscopy Laboratory on the development and application of modern laser spectroscopic techniques to a wide range of fundamental problems. Led by Professors Feld and Steinfeld and Dr. Dasari, this endeavor has achieved efficient collaborative use of expensive optical facilities, while becoming a model for effective training of large numbers of students in state-of-the-art optical techniques. Multiple-resonance and nonlinear laser techniques are being used to study the spectroscopy of highly excited electronic and vibrational levels (including the regime of quantum chaos) and to follow the evolution of phase, velocity, and quantum states in collisional processes. Raman and resonance Raman techniques are being used to study diverse systems, ranging from technetium pharmaceuticals to enzymes. Pump-probe studies of the conversion of light to chemical energy are being investigated with nanosecond to femtosecond techniques. New work is being initiated to investigate photochemical processes at surfaces, interfaces, or in bulk materials and to develop spectroscopic instrumentation for deployment at hydrothermal vents on the ocean floor.